RAPID: Collection of Perishable Data on Wood-Frame Building Failure Mechanisms During the 2011 Tuscaloosa Alabama Tornado

The objective of the research is to collect and archive perishable damage data on structural systems to determine failure mechanisms in wood residential buildings following the Wednesday, April 27 2011 Tuscaloosa, AL tornado. The project will study the building damage patterns in a tornado that caused catastrophic loss to many existing residential structures. A multi-university team of volunteers, consisting of structural engineering faculty, wood scientists and students will conduct forensic investigations throughout the tornado’s damage path. The main research hypothesis is whether implementing structural improvements similar to those adopted in hurricane-prone regions for residential wood structures can also improve housing in tornado-prone regions. The data collection methodology will include both active and passive collection methods, which will establish the level of structural damage and develop general contours of damage showing the maximum force levels throughout the tornado track.

These observations will contribute new knowledge on spatial characteristics of tornado force. Structural failures will be categorized into member failure or connection failure, and the prevalence of each type (particularly of roof-to-wall-connection) will be documented. The surveyed damage pattern will reveal the relationship between the visible debris cloud diameter and the swath of extreme high suction on the ground. The project will yield 1) a publicly-available database of residential buildings damage ratings and failure mechanisms that can readily be used by the engineering research community and 2) an estimation of damage intensity distribution (EF-scale) within the tornado track. These results are essential field dataset for evaluating community vulnerability from tornadoes and as support data for developing realistic retrofit techniques for tornado-resilient housing. The graduate students working on this project will also be exposed to unique educational experience in wind engineering.